Hawaii Ocean Mixing Experiment (HOME): Historical Data Analysis Program - U. Hawaii Contribution

Luther 9819517
Funding is provided to conduct a large coordinated experiment near the
Hawaiian Ridge to determine whether sites with rough topography are
responsible for the mixing of the global ocean. The goals are to identify the major
energy pathways for ocean mixing and achieve an approximate energy budget
for the region. This component will analyze historical data collected in
the vicinity of the Hawaiian Islands to help guide the survey program in
determining the location and ubiquity of regions where strong mixing activity
takes place.